Russian - U.S. Scientific Cooperative Project: Petrotectonic Study of Ultrahigh-Pressure Rocks in the Kokchetav Massif and the Maksyutov Complex of the Ural Mtns.

9304480 Coleman This United States-Russian multidisciplinary cooperative research project will involve field, petrologic, geochronologic and tectonic investigations of intracratonal metamorphic rocks in the Kokchetav Massif and the Maksyutov Complex of the Ural Mountains. Microdiamonds and/or coesite, which form during regional ultrahigh-P metamorphism at mantle depths, have been described from these rocks - their presence in regionally extensive complexes at the Earth's surface may imply the operation of tectonic processes of profound importance. Specific goals of the research include identifying and characterizing the composition of crystalline inclusions in garnet and zircon to establish the conditions of the ultrahigh metamorphism, delineating the P-T-t paths of various rocks, determining the geochemical characteristics of protoliths, and establishing ages of the metamorphic events through radiometric dating.